High Field ESR Studies of Fulleride Superconductors

9730298 Fischer This interdisciplinary experimental research project, involving a major collaborator in Budapest, Hungary, is concerned with electronic conduction in fulleride compounds such as A3C60, where A is an alkali metal. A novel, cavity- less, high magnetic field electron spin resonance spectrometer developed by the Hungarian collaborator, A. Janossy, will for the first time allow measurement of the conduction electron spin resonance below Tc. The American PI Fischer has considerable experience in synthesis, characterization and structure-property correlations in superconducting fulleride salts. Characterization will routinely make use of NSLS at Brookhaven National Lab. The goals of the combined effort will be to solve important unanswered questions in fulleride superconductors and polymers: the nature of the electron-phonon coupling, importance of electron-electron correlations, the identity of the antiferromagnetic resonance in AC60 (spin density wave vs. 3-D magnetic order) and the importance of interchain coupling. This highly interdisciplinary project will involve a graduate student who will pursue thesis research at both laboratory locations, and will receive excellent training beneficial to a future career in industry, government or academia. %%% This interdisciplinary experimental research project, involving a major collaborator in Budapest, Hungary, is concerned with electrical conduction in novel compounds solid compounds known as fullerides. These compounds have as basic building block the carbon-60 (C60) molecule, commonly referred to as the Buckyball. To make the conducting compounds alkali metals such as Rubidium, which easily give up an electron, have been used. It has been found that the resulting compounds can be superconducting up to about 30K, which is higher than any of the convention al familiar superconductors such as Pb or NbTi, and the reasons for this interesting and potentially useful behavior are imperfectly understood. The collaborative research project is especially appropriate because one PI is expert in making and characterizing these compounds, and the other, who is located in Budapest, has developed and is expert in the use of a novel electron spin resonance instrument which will be especially useful to study the electronic conduction processes. The collaborative research will involve training of a graduate student who will work in the laboratories of both PI's, and thereby obtain an unusually international educational experience. This student, and others that may also be involved, will receive excellent training beneficial to a future career in industry, government or academia. ***